Supporting Community College Faculty Across the STEM Disciplines

Multidisciplinary (99)
This project is built around a workshop for faculty and professional society representatives from 10 disciplines in order to develop, integrate, and disseminate instructional resources to community college faculty and professional societies. This set of activities builds on the extensive experience of the three PIs in conducting workshops in their discipline (economics, social sciences, and geosciences). The project is leveraging the expertise and capacity of the Science Education Resource Center (SERC) at Carleton College. SERC is a resource that provides expert technical support for web-based instructional materials and improved undergraduate STEM education.